Symposium on Non-Mendelian Inheritance March 27,28, 1993, East Lansing, MI

A symposium, "Non-Mendelian Inheritance" will be held at Michigan State University on March 27 and 28. The topic is broadly defined so that speakers and participants will be from areas of research which do not normally interact. Students and faculty from near-by undergraduate institutions will be encouraged to attend.